CCF: AF Analytical Tools for Natural Algorithms

This project seeks to build an algorithmic foundation
for the analysis of complex self-organizing systems.
Computing theory has been successful at
pinning down the computational power of
common dynamical systems, but less so
at analyzing their behavior and functionality.
Recent research points to the potential benefits
of viewing these systems as "natural algorithms."
The approach is premised on the belief that
the algorithm itself is at least as important
as the data it generates and that
the current reliance on simulations and statistics
must be supplemented with analytical tools,
something akin to an ``algorithms calculus.''
The research will be oriented along the following lines:
new proof techniques and analytical tools;
communication-based algorithmic renormalization;
geometry, topology, and approximation of complex systems.

The ambition of this project is to lay
the foundations of an algorithmic theory of
complex adaptive systems. Algorithm design
has been one of the most fruitful
areas of computer science in the past few decades.
Building a bridge between this intellectual discipline
and the ever-growing area of complex systems
could potentially have a major impact on science as a whole.
Accordingly, the present project will involve
collaborations with computer scientists, control theorists,
physicists, and systems biologists.